Optimization of Protein Overproduction by Recombinant Microorganisms

Three undergraduate students are to be supported by this supplementary request. Their resumes are included with this request. The proposed work involves three undergraduate research projects which are as follows: 1. Experimental Study of Plasmid Loss The undergraduate student will run continuous fermentations with bacteria containing plasmids encoded to overproduce a protein. Samples will be taken and analyzed in order to correlate plasmid loss with cell growth and protein production rate. Results will be compared with a mathematical model. 2. Modeling and Control of Invertase Overproduction The undergraduate student will perform shake flask experiments and scale-up experiments with a 10-15 liter fermentor in order to test and further develop a mathematical model of the secretion of overproduced invertase by yeast. 3. Selective Recycle via Flocculation and Sedimentation The undergraduate student will run a continuous recycle bioreactor configured to maintain a slower growing flocculent strain in spite of competition from a faster-growing non- flocculent strain. He or she will also perform coflocculation studies with mixed cultures and measure the degree of separation of the two strains that can be achieved by sedimentation in a inclined settler. Each of the three undergraduate students will be supervised by and meet at least biweekly with one of the co-PIs on the NSF grant. In addition, a graduate student supported by the NSF grant will be assigned as a mentor to each undergraduate student in order to assist the undergraduate with the day-to-day aspects of carrying out each project.